A Mechanical Means to Produce Intense Beams of Slow Molecules

In this Small Grant for Exploratory Research (SGER) supported by the Experimental Physical Chemistry Program, Dudley Herschbach of Harvard University will develop a generally applicable approach to produce very slow molecules for potential uses ranging from chemical reaction dynamics to applications in epitaxy or lithography. A supersonic nozzle will be mounted on the periphery of a rotor that spins fast enough to cancel the flow velocity of the molecules emerging from the supersonic source. The net velocity of the molecules will be quite low relative to the apparatus that will utilize them. The device is purely mechanical, operates in a high vacuum, and is expected to produce a homogeneous stream of slow molecules that is uncontaminated by atoms or buffer gas. A successful apparatus will provide a versatile instrument for use by both chemists and physicists.

The high speed at which molecules move under ordinary conditions has been a major handicap in manipulating beams of molecules. This new approach to producing a versatile source of slow molecules has the potential to markedly enhance techniques for controlled chemical applications of molecular beams.